Auger Analysis and Photoluminescence Equipment for Growth and Optical Properties of Atomic-Layer Scale SiGe Structures by Rapid Thermal Chemical Vapor Deposition

The Department of Electrical Engineering at Princeton University will purchase equipment for Auger Electron Spectroscopy and photoluminescence experiments. The goal of the research supported by the equipment is to grow new semiconductor materials which may be useful for integrating light-emitting elements on conventional integrated circuits. The materials under investigation are alloys and multiple layer structures of silicon and germanium, the layers of which may be only one atomic layer thick. The layers will be grown using gas sources and a rapid heating process that is amenable to large scale manufacturing. A process to repeatedly grow single atomic layers in a self-limiting fashion will also be investigated.